Equipment Grant: Digital Image Processing and Analysis Equipment for Videomicroscopy Studies

Digital image processing and analysis equipment is a prerequisite for conductingvideomicroscopy studies of dynamic interfacial phenomena in oil-water- surfactant systems; this project will acquire a digital image processing and analysis system for improving image quality and extracting quantitative information from the recorded images. Dynamic behavior accompanying contact of surfactant solutions with nonpolar and slightly polar oils will be investigated using a novel vertical cell technique which allows a clear view of the growth ofintermediate phases and of spontaneous emulsification. These studies arepertinent to understanding the mechanism of detergency and to various types of nonequilibrium behavior which occur during enhanced oil recovery processes. Diffusion path theory will be extended and used to interpret the results. A major effort will also be directed toward investigating the dynamic behavior of emulsions, especially emulsion breaking and inversion processes.